Multilinear and Nonlinear Harmonic Analysis

ABSTRACT

DMS: 0400879

Ch Thiele

'Multilinear and Nonlinear Harmonic Analysis'
:

The scientific purpose of this project is to study
three interrelated subjects in harmonic analysis:
1) Wave packet analysis. Initiated by the proof of
boundedness of the bilinear Hilbert transform, this type
of analysis has been studied intensely and has led to
a series of results on multilinear operators and maximal
operators. 2) Arithmetic number theory, in particular
the study of arithmetic progressions, sum - and difference sets
etc. The link between arithmetic number theory and the
type of analysis discussed above has recently be reinforced
be several results on multilinear operators. Arithmetic number
theory is also related to other problems in harmonic analysis
such as the famous Kakeya problem.
3) Nonlinear Fourier analysis or scattering theory. Via
multilinear expansions of nonlinear operators in scattering
theory, the latter is linked to multilinear operators.
While the algebraic aspects of scattering theory in one
dimension have been widely studied over the past thirty years,
a number of basic analytic questions remain open and will
be studied in this project.

Wave packet analysis is a discipline in mathematics
that can readily be explained to anyone familiar with
musical scores. A musical score is the decoding of a
complicated musical composition into its most elementary
parts, the notes, each described by duration, pitch, and volume.
Wave packet analysis is the mathematical analogue of this,
which can be used to decode a large variety of mathematical
data into its elementary pieces, each described by the analogue of duration, pitch,
and volume. This type of analysis has had a tremendous impact
on the way computers deal with large sets of data coming from
acoustic signals, images, radar, internet and other telecommunication,
etc. This project studies basic mathematical questions associated to wave packet analysis, fundamental research that is likely to
improve our understanding not only of the types of processes
described above, but also of many different applications within
Mathematics as well. This project will also help to maintain an
active research group in harmonic analysis at UCLA.